Modeling of Microstructrual Evolution during Rapid Thermal Processing

Theoretical and experimental studies are conducted on metal alloy microstructural evolution during rapid thermal cycling. Particle dissolution, grain growth, liquid film formation, and subsequent solidification of intergranular liquid are considered. A physical model of the process is being developed, computer simulation employed, and experimental verification pursued. Analytical transmission electron microscopy is the primary microanalytical technique. The completed research should produce a computational model of microstructural evolution during a complete thermal cycle typical of a weld heat-affected zone. %%% Many multiphase alloys are subjected to rapid thermal processing, such as welding and surface modification through high energy beam melting or thermal spraying. This research will provide a verified computational model applicable to these processes.